NSF Young Investigator

9457906 Beise A program in experimental nuclear physics will be initiated. Electron scattering in the range of 100 MeV to several GeV will be used to study nuclear structure and the properties of few- nuclear systems. ***